Hominid Habitats in the Turkana Basin

Studies in the Turkana Basin of northern Kenya are currently yielding important evidence of the development of early humans in East Africa. Few localities are as ideally suited to answer some of the major questions being asked in paleoanthropology today. This is largely due to the extent of our knowledge of the detailed stratigraphic relations, chronology and environmental significance of the deposits which enclose the fossils and artifacts there. Expanding the geographic range of that knowledge to peripheral areas of the basin holds considerable promise, as recently discovered deposits there represent habits thus far poorly known. This proposal is for continued study of the tephrostratigraphy of the Turkana Basin sequence and of other distal deposits (including the Awash Valley, Baringo Basin and Lake Albert Rift) erupted from the same sources in order to allow temporal integration of these widespread localities. In addition, continued study of the detailed stratigraphy and paleoenvironmental context of the Turkana Basin deposits will further refine our understanding of the context from which one of the richest record of early humans has been recovered.